Hands-On Undergraduate Laboratory in Photonics Using Case Studies and Other Non-Traditional Methodologies

Engineering - Electrical (55)

This project is developing a photonics curriculum with a relevant laboratory based on an "industrial model" that implements case studies. The format of the laboratory is being adapted from an existing NSF-supported "empty bench" model. We extend this format to an "industrial model" that reinforces relevance by simulating the industry environment of the case study. This model incorporates problem based learning by requiring student construction of all experiments, links cognitive and skills-based learning by linking labs
and lectures, and incorporates photonics technology into instruction while stimulating
student interest by giving teams control over purchasing decisions.
Novel assessment instruments are being employed to measure effectiveness of this methodology.